The Young Scholars Field Research Institute

9553500 McMillen Prince George's Community College will initiate a four-week, summer commuter, Young Scholars program in field biology for 24 high school students entering grade 11 from the Washington-Baltimore region. The program will involve classroom discussions, laboratory and research experiences, and field trips with follow-up activities during the academic year. Students will engage in research in the following areas: endangered crane research at the Patuxent Wildlife Research Center, Laurel, MD; osprey banding and behavior studies at Patuxent River Park; aquatic ecology at the University of Maryland's Chesapeake Biological Laboratory, Solomons, MD, and Patuxent River Park; and turfgrass research at the University of Maryland's Turfgrass Research and Education Facility, Silver Spring, Maryland.